Cell Shape and Growth Regulation by Micropatterned Surfaces

9421425 Truskey This project is on research to evaluate the hypothesis that the size and number of focal contacts regulate cytoskeleton organization which, in turn, controls cell shape and growth. A major problem in cell culture and tissue engineering is retaining morphology and function in vitro. This research will study rat hepatocytes because they are difficult to maintain in a differentiated state in vitro, and spreading has been correlated with changes in cell replication and protein synthesis. The specific aims of this research are to: (1) develop micropatterned surfaces with immobilized peptides and sugar groups; (2) study the effect of pattern dimensions and ligand density upon focal contacts, cytoskeleton organization, cell shape, and growth; and (3) study the effect of perturbations in focal contact area and cytoskeleton organization upon hepatocyte spreading and function. ***